A Directory of Arctic Social Scientists

; R o o t E n t r y F @ C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l ! " # $ % & ' ( F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; CLAS_SECT! dD CLAS_DATE! d DUTY_HRS! d NON_DUTY_HRS! d RGST_APRV_ID! d AO_APRV_ID! d TRNG_ADMN_APRV_ID! d DIV_DIR_APRV_ID! d TRNG_SRCE_CODE! d RGST_COMM_TXT! d ( VEND_NAME! OPP-9422303 BURCH The number of social scientists engaged in arctic research has grown substantially over the past two decades. This expansion in numbers, and in the variety of fields represented, has made it increasingly difficult to keep abreast of this research. The proposed project is intended to foster communication between social scientists and others working in the Arctic by creating a worldwide directory which could be made available free of charge to both individuals and organizations. The directory will further make known the expertise of arctic social scientists to northern residents and natural scientists. ; ; ....()()))()() Oh +' 0 $ H l S u m m a r y I n f o r m a t i o n ( D h R:\WWUSER\TEMPLATE\NORMAL.DOT Simona L. Gilbert Simona L. Gilbert @ ) @ x @ N @ Microsoft Word 6.0 2 ; e 3 e u L @ B B B a C T 6 @ @ , OPP-9422303 BURCH The number of social scientists engaged in arctic research has grown su`stantially over the past two decades. This expansion in numbers, and in the variety of fields represented, has made it increasingly difficult to keep abreast of this research. The proposed project is intended to foster communication between social scientists and others working in the Arctic by creating a worldwide directory which could be made available free of charge to both individuals and organizations. The directory will further make known the expertise of arctic social scientists to northern residents and natural scientists. ; ; ....()()))()() u v